NSF INCLUDES San Francisco: Computing for All Levels & Learners (SF CALL)

The Colleges of Science & Engineering and Graduate Education, and the Metro Academies College Success Program (Metro) at San Francisco State University in partnership with San Francisco Unified School District and the San Francisco Chamber of Commerce develop an integrated approach for computing education that overcomes obstacles hampering broader participation in the U.S. science, technology, engineering and mathematics (STEM) workforce. The partnership fosters a more diverse and computing-proficient STEM workforce by establishing an inclusive education approach in computer science (CS), information technology, and computer engineering that keeps students at all levels engaged and successful in computing and graduates them STEM career-ready.

Utilizing the collective impact framework maximizes the efficacy of existing regional organizations to broaden participation of groups under-educated in computing. The collective impact model establishes a rich context for organizational engagement in inclusive teaching and learning of CS. The combination of the collective impact model of social agency and direct engagements with communities yields unique insights into the views and experiences of the target population of students and serves as a platform for national scalable networks.